SGER: Data Management for a Community-Based Monitoring Network--A Pilot Project

ABSTRACT
ARC #0533480

This SGER project will develop a general, community-sensitive method of data transfer, integration, and archiving for qualitative and quantitative information collected as part of an envisioned Arctic community monitoring network. This project will develop a database in a standardized format utilizing best practices, digitize the primary data, produce the metadata that can be utilized by researchers, and develop a format that will be accessible to scientists, indigenous and education communities.